New Perspectives for Teaching Topics in Science, Technology,and Industry at the High School Level Through Teacher Enhancement and Teacher-Based Curriculum Development

New Perspectives for Teaching Topics in Science, Technology, and Industry of High School Level Through Teacher Enhancement and Teacher-Based Curriculum Development is a two-year project which will bring together 46 teachers of science, mathematics, and social studies. Participants will work together with scientists, engineers, and historians to learn how such topics can be used effectively within current curricula to stimulate interest in science and technology. Examples will be used from Lowell history, which has national significance, using museum education techniques of experiential learning. The teacher guides, usable in high schools throughout the country, will be distributed through the Tsongas Industrial History Center. The University of Lowell is contributing in cost-sharing an amount that is equal to 57% of the NSF award.